MULVFS Investigations of Particle Dynamics in the EquatorialPacific Ocean: JGOFS

The Multiple Unit Large Volume in situ Filtration System (MULVFS) will be used to study the particle dynamics and chemistry within the upper 2000 m. MULVFS sampling provides critically needed information on the abundances, chemistry and morphology of the large particles present in the water column. It provides, in addition, a comprehensive suite of information on populations of small particles. This approach has already resulted in major advances in the understanding of particle behavior and fluxes in the upper water column. Sixteen MULVFS deployments will be made on spatial transect cruises from 12N to 12S at 140 W during the spring and fall of 1992. The 640 samples each divided into >53, 1-53, and <1 um particle size fractions will be analyzed for the complete suite of major and minor biogenic elements (C(organic), C(inorganic), N,P,S, Mg, K, Ca, Si, Sr) as well as for Na, A1, Fe, Mn, Cu, Ba and Pb using established methodology. Microscopic analyses include determination of fecal pellet and amorphous aggregate size distributions and morphology. Splits of particulate matter from drifting 'anti-swimmer' traps will be subjected to many of the same analyses.